Automated Screening System Using Cellular Electrodes

The objective of this research program is to produce a reliable, versatile, and reasonably-priced equipment to screen potential anti- cancer agents. This automated cellular electrode system will provide capability that is currently not available commercially for routine screening purposes. The system will be able to measure on-line, the dynamic response of various cell lines or tissues to anti-cancer drugs. It will be simple to use and its capacity can be modulated to handle multiple screening. The analytical component utilizes a sterilizable oxygen electrode which measures the oxygen consumption of the cells continuously. The system is automated and the data acquisition, handling and management are simplified for the convenience of the user. The feasibility of this approach was successfully demonstrated in Phase I. In Phase II, a second generation design of the automated cellular electrode screening system will be designed and built. This will undergo testing in-house as well as in other investigators' testing laboratories.